Feasibility and Viability of Science Media Review Concept -- A Small Grant for Exploratory Research

0003893
FLAGG

Barbara Flagg is conducting exploratory research to assess the feasibility and viability of presenting to the public an on-going review of new findings or issues in major fields of research. This research on the untested idea of providing the public with information about research on a regular, on-going basis through multiple media will provide information about the American public's current science media habits, their awareness of and interest in broad areas of research, and the presentation formats most likely to appeal to and reach the public on a regular basis.